Faculty Development Award

This Faculty Development Award supports the effective integration of research, teaching and service. Research goals are the study of the interaction of metal nanoparticles with electrode surfaces in order to control nanoparticle entrapment in electrodeposited metal oxide thin films. The resulting thin film composite materials will have applications in electrochromics, advanced batteries and luminescent mateterials. The education goals include new general chemistry laboratory curricula on nanoscale chemistry. The service goals include fostering undergraduate research at both Lewis and Clark College and Portland Community College.

The Discovery Corps Fellowship Program is a pilot program seeking new postdoctoral and professional development models that combine research expertise with professional service. Discovery Corps Postdoctoral Fellows are eligible to apply for this Faculty Development Award.